ICCP99: International Conference on Complementarity Problems: Contemporary Applications and Algorithms, June 9-12, 1999, Madison, Wisconsin

9970122
Ferris

This award will support participants at the ICCP99: International Conference
on Complementarity Problems: Contemporary Applications and Algorithms
to be held at the Wisconsin Center of the University of Wisconsin-Madison
from June 9-12, 1999. The general goal of the conference is to bring
together researchers from a variety of backgrounds who are involved in
theoretical, applied, and/or computational research on complementarity
problems. They will present and discuss the latest results in this area, and
offer suggestions for collaborative research and further development of the
field. The conference will focus on three major themes: (1) finance and
economic applications, (2) engineering and machine learning, and (3)
computational methods.